Symposium of Odonatology; Johnson City, Tennessee; August 6-12, 1989

The Tenth International Symposium of Odonatology, sponsored by Societas Internationalis Ordonatologica, will occur at East Tennessee State university during 6-12 August 1989. Approximately 100 biologists, representing many biological disciplines but with a common interest in dragonflies (Insecta: Odonata), are exprected to attend the symposium. This award would support the travel expenses of several selected participants. Allocation of travel funds, determined by a six-person Organizing Committee, will be directed toward active researchers, both foreign and domestic, who would make particularly valuable contributions to the symposium, but would be unable to attend without financial assistance. The resulting exchange on current research topics will be a direct benefit to symposium participants; and publication of many of the papers in Advances in Odonatology, Volume 5, will provide a lasting record to benefit non-participants.